Mathematical Sciences: Dynamics and Symmetry

9403624 Golubitsky In this project we study both the theory and application of symmetric dynamical systems. In many applications, symmetry is introduced either by the supposition of a regular geometry or by the interchangability of parts in a complex system. It has been well established that the existence of regular patterns in experiments and in computer simulations are often due to symmetry. Only recently has it been shown that the existence of intermittency in the dynamics and patterns in the time-average of solutions or experiments can also be forced by symmetry. It is the purpose of this proposal to investigate these and related phenomena. In particular we will study how symmetry and chaotic dynamics intertwine in dynamical systems and how symmetry affects the types of solutions found in systems of coupled cells. In this project we will study iteration of symmetric maps (symmetric chaos), the investigation of coupled systems of ODEs where each subsystem or cell has its own internal symmetry, the stability of heteroclinic cycles (which occur naturally in symmetric systems of differential equations), and the effect of forced symmetry breaking (where perturbations of a symmetric equation to one with less symmetry are considered). Applications to patterns on average in systems of PDEs and experiments (particularly in the Taylor-Couette system and the Faraday surface wave experiment) will be considered as will the existence of intermittency (heteroclinic cycles) in an experiment modeling convection in a porous media. In addition, the dynamics of a number of differential equations with symmetry will be studied by direct computer simulation and the results compared with current theory.